Workshop for Updating and Broadening the Parallel and Distributed Computing Curriculum in Undergraduate Education; Arlington, VA, August 17-18, 2015

Introducing parallelism early into undergraduate education is very important to broader society goals to create knowledgeable workforce. This proposal is seeking support for a meeting to gather community input to inform further efforts for the ongoing initiative of developing and implementing of Parallel and Distributed Computing (PDC) undergraduate curricula nationally and internationally.
Meeting attendees include domain experts, educators, and representatives from government and industry. The discussion is focused around needs of undergraduate curricula, both in introductory and upper level courses, given changes in the parallel and distributed computing landscape, as well as the challenges and opportunities for broadening adoption and participation.